RUI: Investigations of the Gamma Ray Detection Capabilitiesof Low Energy Threshold Air Cherenkov Telescopes

9500231 Kertzman Gamma ray astronomy encompasses a very broad range of energies, from a few MeV to over one hundred TeV. Currently, the critical energy region from 20 GeV to 200 GeV is inaccessible to observation. At lower energies, gamma rays are observed with satellite borne detectors. At higher energies ground based detectors indirectly observe gamma rays, from astrophysical sources, by detecting the Cherenkov light emitted from the electromagnetic cascade which results from the passage of a gamma ray through the Earth's atmosphere. Satellite borne detectors observe an abundance of sources up to approximately 20 GeV. Groundbased detectors, with energy thresholds of 200 GeV see very few gamma ray sources. The intermediate region is therefore of extreme interest, and the goal of the next generation of ground based air Cherenkov detectors is to lower the energy threshold into this region. Essential to the process of designing a low energy threshold air Cherenkov detector is the ability to model the detectors sensitivity to gamma ray induced air showers. The KASCADE simulation system is a series of computer programs developed to model air Cherenkov detector systems. The KASCADE system simulates the air showers due to both incident gamma rays and incident protons, generates a model of the associated Cherenkov light, and tests the response of a specific telescope design to these air showers. The system can be used to study the energy threshold, flux sensitivity, and gamma ray versus proton discrimination power, of a telescope. The long term goal of the research program is to develop a design for a low energy threshold air Cherenkov detector. The research program will also make improvements to the KASCADE system, including developing a more "user friendly" form of the system to distribute to interested users, undertake several small scale studies of the properties of Cherenkov images related to the detection and discrimination of gamma rays, and model cur rently existing and proposed air Cherenkov systems. A low energy threshold ground based air Cherenkov telescope for detecting gamma rays in the region from 20 GeV to 200 GeV will open a new window to the universe. If it is possible to develop this technique, a low energy ground based telescope could be designed, built and operating in less than a decade. In contrast, the next generation of satellite borne detectors has a longer development timescale, and detection of gamma rays is unlikely to reach energies higher than 50 GeV.